Mechanochemical Energy Transduction in Protein Motors

Wang
0077971
ATP (adenosine triphosphate) is the universal chemical
energy molecule in all living cells. ATP driven protein motors
play a central role in many cell functions. For example, kinesin
drives intracellular vesicle transportation and moves chromosomes
during mitosis; myosin drives muscle contraction, and the
V-ATPases regulate intracellular acidity. Understanding the
operating principles of the ATP driven motors is crucial to
comprehending intracellular protein transport and cell motility.
Structural studies are providing the atomic details of motor
proteins, and are revealing more information about the
conformational changes associated with the chemical reactions
they catalyze. Current experimental technologies permit measuring
forces of a single protein motor with piconewton precision and
motions with nanometer resolution. These advances, along with
advances in mathematical modeling and computer power, make it
possible to explore the mechanochemical energy transduction in
molecular motors in unprecedented detail. In this project, the
investigator and colleagues pursue the mathematical and physical
issues that arose in the previous studies of F1 ATPase. These
concern the molecular details of how protein motors should be
modeled and what mathematical formulations are adequate for
modeling them. In particular, the study focuses on the mechanism
of force generation at the catalytic site during the ATP
hydrolysis cycle. Resolution of this key process will illuminate
the operating principles of this ATP driven motor, and likely
other protein motors as well. To accommodate more sophisticated
modeling, the investigator develops methods for analyzing protein
structures and solving complex model equations. The results of
these studies set the stage for modeling the mechanochemical
energy transduction in myosin and kinesin dimers. The approach is
to model the continuous stochastic motion of the motor using
stochastic differential equations and couple these to the
chemical reactions described by discrete Markov processes. The
model equations are constructed from basic physical principles,
structural data, and biochemical and biophysical measurements.
These equations are then analyzed numerically. The hope is that
this will lead to a unified view of ATP driven motors.
To facilitate the fast growing field of biotechnology, it is
necessary to deduce concise mechanisms for biological systems
from experimental results. This requires the application of
fundamental principles from the mathematical and physical
sciences. The purpose of this interdisciplinary project is to
study the mechanisms by which proteins use chemical energy to
generate mechanical forces. In turn, these forces drive a wide
variety of cellular processes essential to life. In all living
cells, the universal chemical energy molecule is ATP (adenosine
triphosphate). ATP is produced using the energy extracted from
food, and the life of every cell depends on processes that are
powered by ATP. For example, muscle contraction is directly
driven by the ATP protein motor myosin. Therefore, understanding
the operating principles of the ATP protein motors is central to
comprehending the life of cells.